Tests of a Model of Question-Answering

How do people know whether they can give an answer before actually searching memory for it? This research will explore the role of "feeling of knowing" in strategy selection: Do humans have a feeling of knowing process that operates fast enough to indicate whether desired information is likely to be stored in memory? Does this process affect whether people search memory for a specific fact, resort to reasoning processes, or simply give up with an "I don't know" response? In order to understand how the feeling of knowing process works, this research will also investigate whether activation and priming of memory affect feeling of knowing judgments and whether activation enhances memory retrieval itself, or merely biases search processes. Finally, the research will address how plausible reasoning is done when search for a fact is not the strategy of choice. The research will develop in three stages: (a) five experiments will ask what factors affect feeling of knowing and whether priming enhances memory retrieval, (b) five experiments will ask how feeling of knowing affects question-answering strategy selection, and (c) six experiments will ask what affects plausible reasoning and whether it is done automatically during reading. To answer these questions, the research will use a number of methodologies. These will include a gameshow paradigm, in which people must determine rapidly whether they can answer a question prior to attempting to answer it, a deadline experiment, in which people must select rapidly the type of question- answering strategy preferred to answer a specific question, a variable deadline paradigm, in which people are trained to respond immediately after a signal that can come at any time after the presentation of the stimulus (and the dependent measure is thus accuracy), plausibility ratings, and simple two- alternative, choice-reaction-time studies. A complete model of question answering and strategy choice may suggest important improvements in data base search and query systems for very large artificial data bases. Work that attempts to understand feeling of knowing processes will be important for understanding clinical cases of memory impairment that include impaired feeling of knowing processes and those that do not.